NGS: An Application Development Environment for Complex Heterogeneous Distributed Real-Time Embedded Computing Platforms

EIA-0204028 Alexandru Nicolau University of California-Irvine An Application Development Environment for Complex Heterogeneous Distributed Real-Time Embedded Computing Platforms

This proposal, describes a number of coordinated strategies that will develop to ensure robust and automatic composition of ( DRE) distributed real-time and embedded systems, based on advances in architectural and resource descriptions that enable concurrent exploration. The DRE applications to be explored in this work are representative of a range of real world distributed computing scenarios form Grids to microelectronic systems-on-chip (SOCs). SOC-based computing resources incorporating diverse sensing and substantial processing capabilities are useful in many DRE application domains, such as avionics, biomedical computing resources and tele-medicine, remote sensing, space exploration, and command and control systems. Examples of domains that could benefit from these advances include: automated transportation systems distance learning, tele-medicine, analysis for combat situations, video conferencing, virtual reality simulation, and weather forecasting and analyses.

The core of our proposal focuses on coordinated compile-time and runtime strategies that enable simultaneous and integrated optimization of (1) DRE application and middleware software and (2) the underlying hardware platform consisting of distributed high-performance processing elements and customized memory systems.